Acquisition of a Workstation Cluster for Research in High - Performance Computing

9414015 Sameh This award will establish a high bandwidth network of high performance workstations for research in parallel computing. The research supported by this infrastructure includes research on distributed sparse matrix algorithms, parallel algorithms for signal processing, parallel algorithms for the n-body problem, large scale distributed neural databases, parallel task scheduling, and parallel operating systems. ***